International Atmospheric Chemistry Meetings, 1987

The troposphere is presently receiving increasing quantities of waste products from our continually growing technological society. The rapid movement of these substances over great distances causes chemical disturbances to the natural troposphere, not only in urban areas but on the hemispheric and global scales as well. Current issues such as the causes and effects of acidic precipitation, possible climate modification as a result of increasing concentrations of radiatively active trace gases, and concern that important nutrient components of the global tropospheric nitrogen and sulfur cycles are being altered highlight the concern about global changes to our tropospheric environment. The Commission on Atmospheric Chemistry and Global Pollution (CACGP) of the International Association of Meteorology and Atmospheric Physics (IAMAP) is convinced that a thorough understanding of atmospheric chemistry on a wide range of spatial and temporal scales is essential if impacts of human activities on the atmospheric environment are to be anticipated and harmful effects mitigated. The CACGP especially calls attention to the global aspects of this problem, which are estimated to impact all nations of the world. The current issues outlined above highlight the concern about global scales changes to the atmospheric environment. The CACGP has therefore strongly urged increased international research efforts devoted to global atmospheric chemistry. As part of its objectives to foster international communication in global atmospheric chemistry and to act as a forum for the development of cooperative international research efforts in this area, CACGP has sponsored international meetings since 1967. The CACGP's Sixth International Symposium on Atmospheric Chemistry is to be held at Peterborough, Ontario, Canada the week of August 24-29. These international CACGP symposia are held every four years and have been generally recognized as the best and most comprehensive international meetings on atmospheric geochemistry. This award will provide partial travel support for up to 40 U.S. scientists to attend this symposium. To select recipients of travel support CACGP will set up a two-person committee to evaluate the applications received. Support of younger scientists will be emphasized. Only U.S. scientists will be eligible. Decisions will be based on the relevance of the individual abstracts to the primary themes and objectives of the meetings.